CAREER: Foundations of Safe and Explainable Embedded Artificial Intelligence-Controlled Smart Power Converters

This NSF CAREER project aims to establish the scientific foundations needed to safely integrate Artificial Intelligence (AI) into the real-time control of power electronic systems that support modern electric grids. Although AI has demonstrated remarkable capabilities in perception and decision-making, its use in safety-critical engineering systems remains limited because key questions about stability, safety, explainability, and robustness remain unresolved. The project will bring transformative change by developing trustworthy AI-based control methods that combine the adaptability of neural networks with the reliability required for critical energy infrastructure. This will be achieved by creating new mathematical tools, validation methods, and educational activities that bridge AI and power electronics. The intellectual merit of the project includes developing a rigorous theoretical framework that enables neural network controllers to operate safely, stably, and reliably in real-time power conversion systems while providing insights into how and why these controllers make decisions. The broader impacts of the project include advancing the safe adoption of AI in power and energy systems, strengthening the future workforce through interdisciplinary education in AI and control engineering, engaging K–12 students through hands-on STEM outreach, and increasing public awareness of emerging technologies through educational resources and community engagement activities. By enabling more trustworthy intelligent control systems, the project will contribute to a more resilient and efficient energy infrastructure that benefits society and supports national prosperity.

The project will investigate five interconnected research thrusts to establish a comprehensive framework for trustworthy AI-based control of power electronic converters. First, the project will develop Lyapunov-based methods for analyzing stability and convergence of neural network controllers for both grid-forming and grid-following inverters in continuous-time and discrete-time settings. Second, it will create safety-constrained learning and control approaches that enforce operational limits while preserving adaptive performance. Third, the project will explore explainability techniques, including parameter visualization, feedback-structure analysis, and comparisons with conventional control architectures, to reveal the internal mechanisms of neural network controllers. Fourth, it will investigate robustness against practical uncertainties, including component parameter drift, variations in grid conditions, and disturbances such as low-voltage and low-frequency events. Finally, the developed methods will be validated through hardware-in-the-loop experiments using real-time digital simulators and three-phase inverter platforms, with benchmarking against state-of-the-art control approaches. The resulting theory, tools, and experimental evidence will advance the deployment of trustworthy AI controllers in power electronics and provide a foundation for broader adoption of AI in safety-critical cyber-physical systems.